The Role of Fungal Proteinase Expression in Mutualistic and Pathogenic Plant-Fungus Interactions

9604537 Belanger Many cultivated and wild grass species are hosts to fungal endophytes of the tribe balansieae. These associations are ecologically and agronomically significant, yet little is know about the physiological aspects of the interactions. One benefit for the plant hosts that results from the interaction is reduced herbivory due to the production of toxic alkaloids by the endophytes. The investigation targets the physiology of the interaction between fungus and host grasses in a model system. In particular, the role of a subtilisin-like proteinase is in the focus of the investigations. This protease is an abundant protein only when endophytes are present. It is homologous to proteases that are considered virulence factors in pathogenic interactions between fungi and plants. The focus of the work is on the expression of the enzyme, its importance to the mutualistic association and evolutionary implications of the protease gene family in relation to mutualistic interactions across kingdoms.